Conference: GAeL XXXI (Geometrie Algebrique en Liberte)

This award funds participation of junior US mathematicians in the 31st edition of Gael (Géométrie Algébrique en Liberté) from June 17-21, 2024 at Turin, Italy, held jointly by Politecnico di Torino and Università di Torino. Géométrie Algébrique en Liberté is a series of annual meetings organized for and by junior researchers in algebraic geometry with a long tradition, drawing in 70-90 participants each year. There are both casual and structured career opportunities for junior mathematicians to interact with speakers and other attendees.

GAeL XXXI will bring together leading experts on a range of topics within Algebraic Geometry, providing an excellent opportunity for junior mathematicians to learn about major new developments. There will be three senior speakers giving mini-courses covering cutting edge results from a wide variety of topics so that GAeL appeals to all PhD students and junior postdocs in algebraic geometry. The rest of the talks are chosen from among the junior participants, often providing the first opportunity for many of these individuals to speak in front of an international audience. More information about GAeL XXXI may be found on the event website: https://sites.google.com/view/gaelxxxi